Conference: Thematic Month Around the Langlands Program

The award supports U.S.-based graduate students and postdocs to attend and participate in the international conferences and winter school as part of the Thematic Month “Around the Langlands Program” in January-February 2026, at the Centre International de Rencontres Mathématiques (CIRM) Luminy, France. The Langlands Program is a deep and ambitious framework that connects seemingly distant areas of mathematics, primarily number theory, representation theory, algebraic geometry, differential geometry, harmonic analysis etc. The main goal of this thematic month will be to bring together leading experts in the various aspects of the Langlands program, as well as young students and early-career researchers, in order to take a fresh look at recent developments, to introduce students to its main challenges, and to strengthen ties between different mathematical communities that share similar interests.

Named after the Canadian mathematician Robert Langlands, who proposed the original ideas in a letter to André Weil in 1967, the Langlands Program aims to establish a far-reaching web of conjectures that relate Galois representations (arising from number theory) with automorphic forms (which come from harmonic analysis). The Program has grown rapidly over the past few decades, and nowadays, there are various manifestations of what is called the Langlands correspondence, ranging from global versions relating global Galois groups to automorphic forms, to local (p-adic and ell-adic) versions relating local Galois groups to representation theory, as well as geometric versions of the Langlands correspondence. A large part of this picture remains conjectural, and it is one of the greatest challenges of the mathematical community to understand what lies behind this phenomenon. The Thematic Month will have weekly themes, as follows: (1) Winter School on Galois representations and automorphic forms; (2) Geometric representation theory in the Langlands program; (3) p-adic aspects of the Langlands program; (4) Geometrization of the local Langlands correspondence; and (5) Relative Langlands and Arithmetic. More information can be found at the program website https://conferences.cirm-math.fr/3498.html.